ITR/SY Algorithmic Issues in Large Scale Dynamic Networks

Algorithmic Issues in Large Scale Dynamic Networks

Michael Mitzenmacher, Harvard University
Eli Upfal, Brown University

We propose to develop a theoretically well-founded framework for the
design and analysis of algorithms for large scale dynamic networks.
In particular, for the Web and related dynamic networks, such as
the underlying Internet topology and
Internet-based peer to peer ad hoc networks. We plan to develop
rigorous mathematical models that capture key
characteristics and can make reliable predictions about features such
as connectivity, information content, and dynamic of these networks.
We plan to apply this framework to test existing
algorithms and construct improved new algorithms.

The mail benefits of developing the mathematical models of the
Web structure and dynamics will be
the improved theoretical foundation for the design, analysis, and
testing of algorithms that operate in the web environment.
The tangible results of this work will therefore be models that can be
subjected to experimental verification, analyses of algorithms based
upon these models, new algorithms that benefit from these analyses,
and, finally, proof-of-concept demonstrations and experimental
evaluations of such algorithms.